Enhancement Program for Physical Science Teachers

This 3-year leadership project will enable 2-cohorts of Houston area 8th and 9th grade physical science teachers to attend a Leadership Institute at the University of Houston- University Park. Each cohort will have 24 teachers. The Leadership Institutes have a two week summer institute and six Saturday workshops during the academic year. Each cohort will attend for two years, overlapping in year -2 of the project. Physics and Chemistry content will be delivered with discipline appropriate pedagogy. To broaden a teacher's network, some AY follow-up will occur at a professional meeting of the Texas Science Teachers' Association. Leader Teachers will give peer-led workshops in their local and neighboring districts. They will be supported by LEAs, industry and the senior personnel from the project. The Principal Investigator for the project is Dr. Hugh T. Hudson. Cost sharing equals 10% of the NSF award.